A High Performance Connection for the University of Idaho

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in molecular modeling, modeling physical systems, network security, computational electromagnetics, geographic information systems and global positioning systems. Collaborating institutions include the University of Washington, University of Oregon, Oregon State University, Rensselaer Polytechnic University and the California Institute of Technology.